Presidential Awards for Excellence in Science, Mathematics and Engineering Mentoring

The main force of the Association for Women in Science (AWIS) Mentoring Project model stems from its ability to be replicated nationwide. With AWIS presentations made throughout the United States, at a UN Conference on Women in Beijing, China (1995), in the former Soviet Union, South Africa, and throughout Europe, this mentoring model has realized international influence and distinction. The program has reached across disciplines with diverse organizations participating such as Americorps, Association for Women in Mathematics, U.S. Department of Energy, Iowa Department of Transportation, and the U.S. Forest Service; corporations such as Bell Atlantic Foundation or The Scripps Research Institute; and institutions such as Edmunds Community College, Iowa State University, and Stanford University. The strengths of the nominee include: . Have created a national model for attracting female students into science. . Model strategy has been adapted in many institutions. . The multi-strength nature of the program. . The program has mentored over 6,000 female students since 1990. In summary, this nomination for the Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring is an excellent one. The program has produced numerous written materials that other institutions/organizations have used to implement successful mentoring models of their own. Through its large scale operation and influence, the AWIS mentoring project is significantly increasing the number of women scientists who can in turn be mentors for others just beginning their training.